U.S.-Poland Project Development in Processes Occuring in Multiphase Systems

Dr. Joseph Kestin of Brown University will visit Dr. Z. Bilicki at the Polish Academy of Sciences' Institute for Fliud Flow Machinery, Gdansk, to prepare a cooperative research project on processes occuring in multiphase systems. The resulting proposal is intended for consideration under the U.S.-Poland Cooperative Science Program and if successful, should contribute to our knowledge of the engineering principles associated with thermodynamic two-phase flow loops.//